CAREER: The Development of Group-III Nitride LED's and Lasers

9501785 Lester In close collaboration with the University of New Mexico's (UNM)1 established group-III nitride (III-N) MOCVD growth effort, a study of innovative processes to improve the fabrication technology for III-N optoelectronic devices is proposed. A contact metallization will be developed that will improve dopant activation and contact resistance by actively scavenging the hydrogen that causes compensation in MOCVD grown III-Ns. Compared to other methods of extracting hydrogen, such as thermal annealing, this approach will have the advantage of preventing surface dissociation that is detrimental to contact formation. This new contact scheme will also be used in conjunction with hydrogen-based reactive ion etching (RIE) to develop novel, low-damage etch processes for pre- metallization surface preparation. A dry-etching process will also be developed for the fabrication of laser mirrors to replace the difficult task of cleaving III-Ns grown on sapphire. With these better processes, III-N LEDs and diode lasers will be fabricated to characterize by optical and electrical pumping the radiative processes found in III-N materials and to determine the effect of dislocations on device operation. The ultimate goal of the research effort--the development of a reliable, blue diode laser-- would be a major technological innovation and is critical towards improving the storage capacity and affordability of high-density optical media and the quality of optical displays. In the educational field, emphasis will be placed on teaching students the scientific and communications skills that will make them more competitive in the job market and better able to interact with and motivate their fellow scientists and engineers. Educational activities will focus on new course development in the area of II-V semiconductor device fabrication and testing, undergraduate and graduate research advising, outreach activities to local high schools to promote the study of engineeri ng in college, the involvement of traditionally underrepresented groups in research, and the mentoring of graduate students in industry through summer job employment. ***